MRI: Acquisition of an X-Ray Photoelectron Spectrometer

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of Maryland in College Park will acquire an X-ray photoelectron spectrometer. This equipment will enhance research in a number of areas: a) nanostructure reactivity and registration at solid surfaces; b) derivatization of metal and metal oxide surfaces via molecular and mesoscopic self assembly; c) chemical vapor deposition of metal oxides; d) combinatorial synthesis of functional oxides; and e) soft chemical routes to novel solid state materials.

The X-ray photoelectron spectrometer (XPS) is used for chemical analysis. It irradiates a sample with a beam of monochromatic X-rays and the energies of the resulting photoelectrons are measured and related to specific elements. XPS often plays a crucial role in defining the system under study. The work to be carried out by these investigators represents a highly coherent attack on a range of issues at the forefront of materials chemistry.